Conference on Quadrature Domains and Related Topics; March 27-30, 2003, Santa Barbara, California

The class of planar domains which satisfy an exact
Gaussian quadrature for all integrable harmonic functions
was introduced 30 years ago by D.Aharonov and H.S.Shapiro.
These rather rigid sets, with real alegbraic boundary,
turned out to be essential objects of investigation in a
variety of problems related to conformal mapping, fluid
mechanics, approximation theory, potential theory, image
processing and operator theory. Top experts in these areas
will attend the conference and will discuss the future
directions of research in this broad area.

The conference will be devoted to a class of planar shapes,
called quadrature domains, which are finitely determined by
indirect measurements. They turn out to be important for
applications ranging from inverse problems of geophysics
and fluid flows to tomography. The meeting will be a unique
opportunity for young researchers to meet experts in all
adjacent areas and to share ideas and information about
quadrature domains.